EAGER: Learning Language in Simulation for Real Robot Interaction

While robots are rapidly becoming more capable and ubiquitous, their
utility is still severely limited by the inability of regular users to
customize their behaviors. This EArly Grant for Exploratory Research (EAGER)
will explore how examples of language, gaze, and other communications can be collected from a
virtual interaction with a robot in order to learn how robots can
interact better with end users. Current robots' difficulty of use and
inflexibility are major factors preventing them from being more
broadly available to populations that might benefit, such as
aging-in-place seniors. One promising solution is to let users control
and teach robots with natural language, an intuitive and comfortable
mechanism. This has led to active research in the area of grounded
language acquisition: learning language that refers to and is informed
by the physical world. Given the complexity of robotic systems, there
is growing interest in approaches that take advantage of the latest in
virtual reality technology, which can lower the barrier of entry to
this research.

This EAGER project develops infrastructure that will lay the necessary
groundwork for applying simulation-to-reality approaches to natural
language interactions with robots. This project aims to bootstrap
robots' learning to understand language, using a combination of data
collected in a high-fidelity virtual reality environment with
simulated robots and real-world testing on physical robots. A person
will interact with simulated robots in virtual reality, and his or her
actions and language will be recorded. By integrating with existing
robotics technology, this project will model the connection between
the language people use and the robot's perceptions and actions.
Natural language descriptions of what is happening in simulation will
be obtained and used to train a joint model of language and simulated
percepts as a way to learn grounded language. The effectiveness of the
framework and algorithms will be measured on automatic
prediction/generation tasks and transferability of learned models to a
real, physical robot. This work will serve as a proof of concept for
the value of combining robotics simulation with human interaction, as
well as providing interested researchers with resources to bootstrap
their own work.